RUI: Design of Object-Oriented Programming Languages

NSF Research Proposal Number: CCR-9988210
PI Name: Bruce, Kim B.
PI Institution: Williams College
Title: RUI: Design of Object-Oriented Programming Languages

The overall goal of this research is to improve the design of
statically typed programming languages, especially object-oriented
programming languages. The main projects for the next three years
include the following: 1. Consolidating and disseminating knowledge of OO language design,
type theory, and semantics, by completing a monograph presenting the
results of recent research in this area. 2. Investigating further issues in the design of language features
for programming in the large, especially with object-oriented
languages. 3. Investigating typed intermediate languages and other
implementation strategies for object-oriented languages.
We intend to continue using the language LOOM as a test bed for further
investigations into the best way to support features of
object-oriented languages, while also investigating how to use the
best of these ideas to enhance real languages like Java and its
successors.